CIF: Medium:Collaborative Research: Nonasymptotic Analysis of Feature-Rich Decision Problems with Applications to Computer Vision

This project deals with theory and efficient algorithms for statistical decision problems that are radically different from those that have been studied to date in two key aspects: First, the decision-maker may choose among a large class of observation channels (features) of varying complexity and quality; and second, the total cost of computational resources that can be used prior to arriving at a decision is limited. Computer vision is a paradigmatic source of such feature-rich decision problems, requiring the use of multiple heterogeneous feature types, integration of diverse sources of contextual information, and possibly even human interaction.

This project entails the development of a rigorous mathematical framework for feature-rich decision problems in accordance with three specific aims: (1) structural characterization of features as stochastic belief-refining filters; (2) universal cost-sensitive criteria for numerical comparison of features in terms of expected information gains; and (3) optimal value-of-information criteria for sequential feature selection that take into account both feature extraction costs and terminal decision losses. As corollaries, this research investigates connections to asymptotic information-theoretic characterizations of optimal feature selection rules and decisions. The fourth specific aim of the project is the development of practical algorithms for two challenging computer vision problems: active visual search and fine-grained categorization. This component of the project leverages theoretical aims (1) and (2) to develop practical cost- and loss-sensitive feature compression techniques. Theoretical aim (3) targets algorithms that function as autonomous decision-making agents. Faced with an inference task on an image, they apply cost-sensitive non-myopic value- of-information criteria to decide at each time step whether to extract a new feature from the image or to stop and declare an answer.